Sparse and Regularized Optimization

Most algorithmic research in optimization has focused on models
consisting of a single objective together with a number of
constraints, all defined precisely and deterministically, where an
exact solution is required. This paradigm is inadequate in many
applications. First, there is often uncertainty in the model and data;
this is being dealt with by a recent upsurge of work in stochastic and
robust optimization. Second, users often require a simple approximate
solution rather than a more complicated exact solution. When the
problem is formulated in the appropriate space, simplicity is often
manifested as sparsity - the vector of variables has relatively few
nonzeros. Inclusion of nonsmooth regularization terms in the
formulation can steer the model toward sparse solutions. This proposal
focuses chiefly on algorithms and theory for sparse and regularized
optimization, and on application of the methods to such important
areas as compressed sensing, machine learning, computational
statistics, and image processing. The project also takes a
higher-level view, cross-fertilizing algorithmic ideas across
different application areas, and devising and analyzing algorithms in
general settings that encompass many specific applications.

Optimization methods can be used to solve a great variety of practical
problems, such as design of cancer treatment plans, removing noise and
blur from images and videos, identifying genomic and environmental
risk factors for diseases, and reconstructing pictures, signals, and
other data sets from limited random samples. Precise mathematical
formulations of these optimization problems are available, and exact
solutions can often be obtained, but what is needed in many cases is a
simple, approximate solution that is easy to compute, understand, and
apply. To take one example: Many images can be stored by taking a
small number of random combinations of the pixels that make up the
image. The optimization algorithm that reconstructs the original
picture from the samples should look for the simplest picture that is
roughly consistent with the random observations; this image is likely
to appear more natural than complicated images that give an exact
match to the data. This project investigates how the mathematical
statements of problems like this one, and the mathematical methods
that solve them, can be modified to produce simple solutions.